RI: Doctoral Consortium for International Conference on Cognitive Modeling, 2007

Proposal 0712792
"RI: Doctoral Consortium for International Conference on Cognitive Modeling, 2007"
PI: John E. Laird
University of Michigan

ABSTRACT

This award partially subsidizes the participation of approximately 10 doctoral student's in a one-day consortium that will precede the International Conference on Cognitive Modeling (ICCM) to be held July 27-29, 2007 at the University of Michigan in Ann Arbor. ICCM is the premier conference for research on computational models and computation-based theories of human behavior. The Doctoral Consortium will bring together top graduate students in cognitive modeling, enable them to present their ongoing research, and to receive feedback and mentoring from senior leaders in the field. By contributing to the doctoral research and education of the participants and introducing them to the network of other scientists in the field of cognitive modeling, this award has significant Intellectual Merit and Broad Impact.